Joint Japanese/American Meeting on Potential Applications of Logic Programming in Molecular Biology

Over the last two years, there has been increasing interest in the application of logic programming technology to problems in biology. A number of institutions worldwide have formed interdisciplinary research groups to explore this application. The group at Argonne National Laboratory, with participation of scientists from Washington University, have begun active research in applying logic programming to molecular biology. The fifth Generation project at Japan's ICOT has also created a working group to explore such applications. The purpose of this project is to provide travel funds for an American Scientist (as a member of a team) to attend a meeting in Japan for the purpose of developing joint research in this area between the two countries.